U.S. - Japan - China Trilateral Planning Conference

Following the 1986 Tokyo meeting of the International Commission on Physics Education, leaders of the U. S., Japan, and China delegations agreed to establish Advisory Committees in each of the three countries to plan ways to work together in exploring various aspects of physics education. This project will allow representatives of those committees to meet in Hawaii in the summer of 1989 to explore ways to interact on such topics as the role of women in physics, the education of physics teachers, the physics curriculum, development of low cost experiments, computer applications in physics education, research in concept formation by physics students, and the relation between physics education and languages. The meeting will be followed by planning and implementation of concrete activities in each country under the guidance of the respective Advisory Committees.